EAGER: Novel Hybrid Inorganic-organic Tandem Junction Solar cells

The objective of this EAGER project is to rapidly increase the efficiency and stability of organic solar cells by combining them with an inorganic solar cell in a tandem or multiple junction arrangement and do the fundamental device research needed to get over 10% stable efficiency. Achieving higher efficiency and stability simultaneously is a critical need in the field of organic solar cells. The project is based on the very recent invention by the PI of a tandem junction comprising inorganic and organic solar cells which increased the conversion efficiency and the stability compared to the organic cell by itself.